Doctoral Dissertation Improvement Grant: Mayan Exchange Mechanisms, Consumption and Household Provisioning Strategies

Under the supervision of Dr. Christopher A. Pool, Christopher M. Gunn will conduct analyses of pottery collections from the ancient Maya site of Kiuic. This site was a mid-sized community located in the Puuc Hills region of the northwestern Yucatan Peninsula. Beginning around 600 AD, the Kiuic community underwent an intense and rapid period of growth in which new households were founded, established households were expanded, and new public architecture was begun. However, by approximately 1000 AD, the Kiuic polity had been abandoned, leaving several of the largest building projects unfinished. This research project focuses on how the social processes involved in the expansion and decline of the Kiuic community affected household economies.

Household economies provide an important window on political processes for two primary reasons. First, households in all societies - present as well as past - rely on external exchanges to survive over time. Economic interaction among households provides the goods that households need, and fosters community integration. Second, a household's socioeconomic status in its community directly influences the kinds of exchange relationships its members use. Minimal differences in status encourage economic exchanges that are mutually beneficial for participating households. When differences in socioeconomic status are greater, wealthier households often manipulate economic systems to their advantage. They may do so by rewarding supporting households with high value items that they manufacture or import from other places, or they may use their power to demand tribute or taxes from lower ranking households. All three of these kinds of exchanges may exist alongside markets controlled by local elite households. Each of the kinds of exchange fosters economic integration, but has different consequences for interaction among elites and non-elites. Although this research project is specifically focused on ancient Maya economies, it raises issues of community economic integration that are relevant to modern households experiencing cycles of economic growth and decline.

This research project forms the basis of Mr. Gunn's doctoral dissertation research, which uses utilitarian and more elaborate kinds of pottery excavated from several of Kiuic's households to test for evidence of exchanges among equally ranked households, among unequally ranked households, and through markets. Results of the research will be shared with the academic community through online publication of the dissertation at the University of Kentucky, through articles published in peer review journals, and in papers presented at professional meetings.

Mr. Gunn's research also forms part of the broader research and educational objectives of the Kaxil Kiuic A.C. non-profit organization. Mr. Gunn will collaborate with Mexican ceramic analysts, thereby fostering international scientific collaboration. Part of this collaboration will result in the construction of a reference collection of Kiuic's ceramics. This collection will be housed in Oxkutzcab, Mexico, and will be available for students and researchers working in the region. In addition Mr. Gunn will prepare an electronic presentation on the role of pottery in ancient Maya households. This presentation will focus on the role of ceramics in ancient Maya households, and will be geared towards general Spanish and English speaking audiences. It is hoped that this presentation will foster greater appreciation of the abundant archaeological remains of the northern Yucatan Peninsula, and encourage reflection about the value of studying ancient societies to increase understanding of modern ones.